Renovation of Selected Biology, Chemistry and Physics Research Laboratories

Keil: Funds awarded to the University of Dayton will be used to renovate 4,800 square feet of Biology, Chemistry, and Physics research space within the 35 year old Sherman and Wohlleben Halls. The infrastructure of these facilities, especially the HVAC, hood, plumbing and electrical systems is unsatisfactory and compromises the ability, both in scope and rigor, to conduct necessary experiments. In addition, the current state of the laboratories discourages research participation by students. Four faculty and more than twenty students will directly benefit from the infrastructure improvements; research programs examining the regulation of plant metabolism, chemical reactions of DNA molecules, biological applications of ceramic materials, and electro-optics will be enhanced. Student interest in science and participation in research, especially within the under-represented groups, is expected to increase with the opportunity to work in modern laboratories. The NSF-funded portion of the project is part of an ambitious campus effort to renovate more than 200,000 square feet of campus science facilities.